Travel Support for U.S. Participants in the Eighth Marcel Grossmann Meeting, Jerusalem, Israel, June 22-27, 1997

Travel funds will be provided for U.S. scientists to attend the Eighth Marcel Grossmann Meeting on Recent Developments in Theoretical and Experimental General Relativity, Gravitation, and Relativistic Field Theories. The Marcel Grossmann meeting will take place on June 22-27, l997 in Jerusalem, Israel. The availability of funds will be announced through the electronic mail distribution list maintained by Malcolm MacCallum, in the newsletter for the APS Topical Group on Gravitation, and in general conference announcements. The applications will be reviewed by a panel of U.S. scientists representing a balanced mixture of research interests and expertise.